Super instruction architecture for petascale computing.

This proposal is for a provisional allocation of time on the Blue Waters computer system, due to become operational in 2011, and for travel funds to support technical coordination with the Blue Waters project team.

The project will use Blue Waters to investigate a number of topics in quantum chemistry and biochemistry including, the structure and behavior of protonated water clusters, the conformational energy of amino acids, and the photoisomerization of rhodopsin. The work on rhodopsin is important for understanding one of the chemical processes involved in vision and will also have potential application in the field of molecular electronics.

The project will provide a methodology for the creation of domain-specific languages in a range of disciplines, providing a mechanism to efficiently generate scalable, parallel software for scientific research.